Molecular Marine Biology and Marine Biotechnology: Research Opportunities and Policy Issues

9616222 Fischer This is an interagency transfer of funds in partial support of a National Research Council study of research opportunities in marine biotechnology. ***